CPA-CSA: Wisconsin Arrays in Software Project (WASP)

Commodity systems are changing the face of storage and I/O. Commodity disks
are cheap, but unreliable. Commodity file systems are widely used, but bug
prone. Despite these critical problems, people rely increasingly on commodity
computing systems to store data of critical importance, whether from an
emotional (e.g., family photos), business (e.g., a customer database), or
legal (e.g., your tax return) standpoint.

The Wisconsin Arrays in Software Project (WASP) tackles the problem of
building the next generation of robust and reliable commodity RAID
system. Such a RAID system must be reliable, detecting and recovering from a
broad range of disk faults correctly. Such a system must also integrate
properly into existing systems, thus delivering high performance and proper
recovery in the case of system crashes. Finally, such a system must be
flexible, enabling new protection strategies to be developed and deployed to
cope with new problems as they arise. WASP has two major components: the
first is a RAID design checker known as Sting, which ensures that protection
schemes correctly protect data from a given set of disk faults. The second is
a framework to allow the specification and automatic generation of
sophisticated RAID systems; known as WASP Nest, this part of the project
promises a new higher-level design methodology for commodity RAIDs.